CAREER: Cavity QED of Semiconductors with High-Q Dielectric Microspheres

9733230 Wang This is a CAREER Award which combines research and education in semiconductor quantum optics. The research program will extend cavity quantum electrodynamics (QED) studies into the domain of semiconductors by developing a novel approach based on composite semiconductor-microsphere systems that can take advantage of extreme three dimensional photonic confinement in a dielectric microsphere. Dynamics and radiative processes in the systems will also be investigated by using various techniques of time-resolved photoluminescence. The objective is to understand how radical modifications in vacuum fluctuations can change fundamental spontaneous emission processed in semiconductors. The education program includes developing a university-wide photonics curriculum and initiating an industrial internship program affiliated with the Oregon Center for Optics to better prepare students for growing job markets in photonics-related industries. The education program also includes creating a new graduate course on semiconductor quantum optics to bring down barriers between quantum optics and condensed matter physics. %%% This CAREER Award combines research and education in a technologically important area of optics and semiconductor physics. The research program centers on fundamental optical processes in a novel semiconductor optical devices where the size of the optical resonator approaches the optical wavelength. These studies should improve our understanding of physical behaviors and limit of devices such as micro-lasers and may also lead to new concepts for devices such as ultralow threshold lasers. The education program includes developing an undergraduate photonics curriculum to make photonics education accessible to students in other disciplines and initiating an industrial internship program to better prepare students for growing job markets in photonics- related ind ustries. ***